CAREER: Theoretical Studies of Condensed Phase Conduction and Spectroscopic Processes

Brian Space is supported by a CAREER grant from the Theoretical and Computational Chemistry Program to perform theoretical studies of condensed phase conduction and spectroscopic processes. This research program focuses on the theoretical investigation of condensed phase and interfacial phenomena. The research is concentrated in two areas: 1) the investigation of electronic localization and conduction behaviors at metal-dielectric interfaces; and 2) the continued development of instantaneous normal mode theories to better understand the information contained in liquid state spectra. Space will also integrate his research and teaching efforts by introducing computer simulation into the undergraduate Physical Chemistry curriculum at Duquesne University. Instantaneous normal mode methods are rapidly emerging as a powerful new tool for understanding the complex behavior of condensed phase systems. They are providing new molecular insights into the interpretation of experimental spectroscopic data and other materials properties